Research Initiation Award: Intelligent Control of Electromagnetic Fields

9308924 Smith There exists a vast potential for applying unconventional computing methods to many electromagnetics (EM) problems to reduce the amount of intuitive analysis and to relax the computational intensity of many problems. Choice of a particular method depends on the application and the data being analyzed. Initially this study focuses on improving the radiation properties of large distorted satellite reflector antennas. Preliminary investigations indicate the neural network computing algorithms could be used for electromagnetic compensation for surface errors. The advantages of using this intelligent approach versus one of the exiting methods are speed (allowing real-time radiation control) and data reduction. The first part of this study involves bringing this new technology to a mature state. The ultimate goal of this effort is application of these intelligent electromagnetic compensation methods to active control of electromagnetic compatibility (EMC) problems associated with electronic devices. Passive control methods using shielding, ground wires, etc. have long been used. With higher clock frequencies and the use of nonmetallic materials in auto bodies and aircraft fuselages, unwanted radiation is an ever increasing problem. This investigation proposes to investigate active control of radiated emissions. ***